Neural Basis of Circadian Rhythms

ABSTRACT PI: Zucker Neural Basis of Circadian Rhythms Orientation in time is a critical adaptation of all animals. Daily activity cycles and seasonal rhythms both rely heavily on endogenous circadian rhythms apparently generated in some vertebrates by highly localized brain "clocks." In mammals and birds the suprachiasmatic nucleus (SCN) of the hypothalamus has been considered the dominant or "master" circadian clock. When in the course of vertebrate evolution the SCN assumed its timekeeping function is not known. Dr. Zucker is determining if the SCN is essential for the generation of circadian rhythms in swimming behavior and physiology and whether the retino-hypothalamic pathway that terminates in the SCN mediates entrainment of circadian rhythms. This highly innovative and risky investigation will provide the first information on brain mechanisms responsible for generation of non-mammalian circadian rhythms and will be useful in theorizing about the evolution of neural control of rhythmicity in vertebrates.